Travel Grant for the 2002 IEEE International Symposium on Information Theory

The IEEE International Symposium on Information Theory (ISIT) is held yearly at
different locations in the world. The 2002 ISIT will be held at the Palais de
Beaulieu in Lausanne, Switzerland, from Sunday, June 30, to Friday, July 5,
2002.

This grant provides support for the travel expenses of ISIT participants from
the U.S. These participants would be individuals whose papers have been
selected for presentation at the Symposium, but who lack funds and would not be
able to attend without travel support.